Role of Fronto-Parietal Cortex in Delay Discounting

Choices made between outcomes available at different points in the future
(intertemporal choices) constitute an important and common set of decisions
encountered in everyday life. How people respond to such choices is also known
to be predictive of a number of important life outcomes, and can be summarized
using laboratory measures of delay discounting. Understanding the cognitive
brain processes that underlie delay discounting, and particularly our ability to
resist immediate temptations, is an important area of research in cognitive
neuroscience. Significant progress has been made in this area over the past
decade. It is now well established that brain reward areas, including the
ventromedial prefrontal cortex (vmPFC), encode the subjective value of
prospective rewards. It is also established that a network of regions in lateral
prefrontal (lPFC), dorsomedial frontal (dmFC), and posterior parietal cortex (pPC)
are engaged when making intertemporal choices. However, the role of this
fronto-parietal cortical network (FPN) remains debated and less understood. The
current research project builds on recent computational modeling work done by
McClure and his colleagues to test and unify competing theories of FPN function
in delay discounting. This work promises to further our understanding of the brain
basis of important cognitive processes related to the exertion of willpower and
self-control.

We will conduct three studies that employ both fMRI and EEG to investigate the
role of different frontal and parietal regions in intertemporal decision-making. In
preliminary work, we have used our computation model framework to
demonstrate that (1) the pPC interacts with the vmPFC during the valuing of
choice options, and (2) value information is accumulated in the dmFC during
action selection. This project will further test how the FPN functions under
conditions of temptation and cognitive load and how these manipulations
influence choice outcomes. A number of disorders, including attention deficit
hyperactivity disorder and drug addiction, have been directly associated with
delay discounting. The proposed studies of delay discounting therefore represent
a clear example in which cognitive neuroscience approaches promise to directly
impact and improve our understanding of normal and aberrant behavior. Finally,
decision neuroscience is a highly interdisciplinary field that combines elements of
economics, psychology, and neuroscience. It offers an exciting training
opportunity for the students at various levels of training who will be directly
involved in the project.